Smart Fluids

Fluids that rapidly and reversibly change to solids on the application of an electric field would be very useful for damping vibrations. Electro-rheological fluids exist; however, because they are suspensions of solids in inert liquids, problems are experienced with designing practical devices. Electroviscous fluids are single-phase liquids whose rheology changes on application of an electric field. This effect is normally very small. This Phase I research explores the feasibility of designing electroviscous fluids that experience large changes in viscosity on application of electric fields. The research involves synthesis of the experimental verification of the unusual properties of a novel class of lubricants.